U.S.-Japan Joint Seminar: Advanced Materials Based on Macromolecules/October 1990/Tokyo, Japan

This award will support the participation of six U.S. scientists in a joint seminar entitled "Advanced Materials Based on Macromolecules," to be held under the auspices of the U.S.- Japan Cooperative Science Program. The focus of the meeting will be on recent advances in polymer synthesis that provide new levels of control of polymer structure and that underlie future developments in optical, electronic, biomedical, and high-strength materials. Previous U.S.-Japan seminars in areas of polymer synthesis served as opportunities for research groups in the two countries to share ideas and information, and in several cases led to cooperative research projects and exchange visits. Similar results are expected from the present meeting. Specific topics to be discussed at the seminar include recent advances in the control of polymer chain structure, advances in optical properties of polymeric materials and in conducting polymers, liquid crystalline polymers, radiation-sensitive polymers, polymers in biology and medicine, and polymers in composite materials. The seminar will be held October 29 - November 2, 1990, in Tokyo, Japan. The co-organizers are Professor David A. Tirrell, Department of Polymer Science and Engineering, University of Massachusetts at Amherst, and Professor Eishun Tsuchida, Department of Polymer Chemistry, Waseda University, Tokyo, Japan. Advanced materials underlie current and projected developments in electronics, communications, aerospace, automotive, and health care industries, among others. Considerable research on advanced materials based on macromolecules is being carried out in the United States and Japan. This seminar will highlight recent advances in polymer synthesis in the two countries that point the way to future materials development.